POWRE: A Micro Gas Separation Column

The separation of gases by adsorption processes is a primary tool used by U.S. chemical companies to produce large quantities of high purity gases for industrial use. In this work, the PI, Dr. Robertson, will develop a microreactor technologies. The microseparation column will be fabricated using silicon micromachining techniques, and will subsequently be filled with a zeolite adsorbent. The PI will engage in a collaborative research endeavor at her home institution, Lafayette College and at Lehigh University. Funding provided will impact students at Lafayette, exposing undergraduates to the challenges of state-of-the- art engineering research endeavors. This funding is also expected to provide Dr. Robertson with opportunity to forge a long-lasting research relationship with Lehigh University, thereby allowing her to establish a significant integrated research and education program.